Continued Support of Core Activities for Committee on Earthquake Engineering

This award is for renewed support for the Committee on Earthquake Engineering. The committee was established in 1983 as a standing committee by the National Research Council to provide a national focus for, and continuing assessment of the nation's earthquake engineering activities under the National Earthquake Hazards Reduction Program.